SGER: Enhance Research Capabilities at Carrie Bow Cay Field Station, Belize

*** 9732565 Ruetzler This small award will allow the Caribbean Coral Reef Ecosystems Program and its lab in Belize to acquire a small research boat to accommodate visiting scientists working in the coral reef, seagrass and mangrove systems of the Belizean barrier reef complex. This will allow scientists at the lab to optimize their investigations of coral bleaching in the Belize barrier reef complex as well as to accommodate studies of the possible responses to ENSO perturbations. The NSF supports many scientists using the CCRE lab for short- term experimental studies and excellent field access. The new vessel will improve the capability of the lab and will facilitate many research projects. ***